NSF Young Investigator

9457603 Ghosh This NYI award is to provide linkage between fundamentals of mechanics, materials science, design and manufacturing. Novel methods of computational mechanics using multiple scale analyses for concurrent design and processing of advanced materials will be employed. Industrial interaction will be used to validate the procedures. ***